STEM, growth mindset, and sports: Investigating STEM program design features that impact youth engagement

Well-designed out-of-school time experiences can provide youth with rich opportunities to learn. However, to design effective out-of-school time experiences, it is critical to have a research basis that clarifies the features of programs that support increased youth engagement that then leads to better outcomes for youth. This project explores the features of programming that integrates sports, mathematics and science concepts, and growth mindset for 4th through 8th grade aged Latinx and African American youth. To accomplish this, the investigators refine curricular resources for out-of-school time programs and develop a model for professional learning experiences for informal educators and facilitators to support their implementation of integrated sports and STEM programming. To identify critical features of the programming, the researchers explore the ways that the program activities are implemented in two different contexts as well as the impact of the programming on youth participants’ mindset, understanding of science and mathematics concepts, STEM interests, and self-perceived science and mathematics abilities. Additionally, researchers will explore the ways that the sports-themed programming supports (or could better support) girls’ engagement.

The project builds on the University of Arizona researchers’ existing partnerships with Major League Baseball (MLB) and Boys/Girls Club programs and an existing school-based MLB program for schools to (a) expand and refine Science of Baseball activities to enhance engagement among girls and incorporate growth mindset experiences that focus on the value of effort, determination, and learning from mistakes in both athletics and STEM; (b) study the enactment and outcomes of the program with 4th-8th grade aged youth in the two distinct informal learning settings; and (c) develop and refine a model for professional learning that includes in-person and on-line components for training informal STEM learning facilitators. The work will focus on two study contexts: afterschool programs of Boys and Girls Clubs in AZ, CA, and MO and summer programs of MLB in CA and MO. Participants will include 300 youth and up to 28 informal STEM learning facilitators split across the two contexts. Design-Based Implementation Research (DBIR) will be used to a) iteratively refine the activities and professional development model, and b) study the enactment and outcomes of the program. Research questions focus on outcomes for youth participants (i.e., impact on growth mindset, STEM dispositions, and understanding of science/math concepts), and the elements of effective professional development for informal STEM educators. Outcomes of the project include empirical evidence of what works and what doesn’t work in the design, implementation, and professional development for STEM learning programs that integrate sports and growth mindset principles. In addition, outcomes of the project will advance knowledge of how different out-of-school program structures with similar sports-focused STEM programming can similarly (or differentially) support youth learning.

This project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.